Special Project: Completion of Computing History Memoir

9622944 Grosch, Herbert R. Individual Award Special Project: Completion of Computing History Memoir This project provides partial support for the PI to develop an historical memoir of his work and observations during the latter part of an unusual career in computing, centering on the years 1959-1987, during which time he was contributing in a major way to work in Europe and Japan and representing the US on various international Committees. It is expected that the material will provide context for current and future work in computing and be of benefit to the community. ***